Level Set Algorithms for Image Analysis: Advanced Numerical Techniques for Shape and Character Recongnition and Recovery (Postdoctoral Research Associateship)

Sethian 9404904 This proposal will develop a new approach to shape modeling which retains the most attractive features of existing methods, and overcomes their prominent limitations. The technique can be applied to model arbitrarily complex shapes, which include shapes with significant protrusions, and to situations where no a priori assumption about the object's topology is made.